Discovery Corps Senior Fellowship: Service-research Activities with Nicaraguan Small-holder Coffee Producers

Susan Jackels will undertake an international collaborative project to establish a laboratory for agricultural and environmental analysis at the University of Central America Managua. She and her collaborators will use this laboratory to conduct research with Nicaraguan coffee growers that can help to improve the quality and marketability of their coffee.

This award is cofunded by the Division of Chemistry, the Office of International Science and Engineering, and the Office of Multidisciplinary Activities. The Discovery Corps Fellowship Program is a pilot program seeking new postdoctoral and professional development models that combine research expertise with a service-oriented project. The Discovery Corps Program supports both Postdoctoral Fellows and Senior Fellows.